U.S.-Brazil Cooperative Research: Semiclassical Methods forHeavy Ion Collisions

This award from the U.S.-Brazil Cooperative Science Program supports collaborative research in theoretical physics to be conducted, in the U.S. by Dr. Michael W. Guidry of the University of Tennessee, Knoxville and Dr. John O. Rasmussen of the Lawrence Berkeley Laboratory and, in Brazil by Drs. Raul Donangelo and Filipe Canto of the Federal University, Rio de Janeiro and Dr. Mahir Hussein of the University of Sao Paulo. The focus of the research will be to use semiclassical methods to gain a theoretical description of heavy-ion collisions when one of the collision partners is deformed. The work could lead to a practical and reliable tool to interpret present and future heavy-ion experiments. The project will extend previous calculations to a more comprehensive treatment of heavy-ion transfer reactions including the treatment of two- and one-particle transfer reactions, and will incorporate new ideas in nuclear structure such as the Fermion Dynamical Symmetry Model. The formalism will permit study of a substantial body of high-spin transfer data for which there are presently few theoretical calculations, and should prove valuable for understanding transfer data that will become available with GAMMASPHERE and EUROBALL. The project brings together a group of internationally known physicists who have collaborated well in the past.